Mathematical Sciences Computing Research Environments

The Department of Mathematical Sciences at Rensselaer Polytechnic Institute will purchase a high performance workgroup server which will be dedicated to the support of research in the mathematical sciences. The equipment will be used for several research projects, including in particular: wave motion in multiphase reactive flows; machine learning in data mining; medical tomography; image and signal analysis.